IUPAC International Symposium on Ionic Polymerization, Boston, Massachusetts, June 30 to July 4, 2003.

This award will support, in part, the travel expenses of ten (10) graduate students/postdoctoral fellows for participation in the "IUPAC International Symposium on Ionic Polymerization," to be held at the Tremont Hotel, Boston, Massachusetts, on June 30 - July 4, 2003. This symposium is being organized by Professor Rudolf Faust, University of Massachusetts, Lowell, and Professor Roderick P. Quirk, University of Akron, Akron, OH. The symposium is sponsored by the International Union of Pure and Applied Chemistry, the Polymer Chemistry Division of the American Chemical Society, the University of Massachusetts, Lowell, and the University of Akron.
***